Thru-Hole Soldering and Surface-Mount Technology Electronic Laboratory Development

9450952 Garcia This project proposes the development of a course to train undergraduate students in thru-hole technology and surface-mount technology. This course would be made available to students from four programs of study including Electronic Technology, Electronic Servicing Technology, Biomedical Equipment Technology and Instrumentation Technology. New trends in electronic soldering, assembly, rework, and repair have brought about a revolution of soldering techniques. Basic hand skill soldering techniques of the past are being replaced in industry by sophisticated High Reliability Interconnection Technologies. These changes have resulted in the need for students to become familiar with new equipment, learn new procedures, and become competent in new soldering techniques in order to be a marketable employee. Very few undergraduate institutions are teaching new soldering techniques. Most industries are sending their employees to speaialized learning centers where they can master tasks required to be certified in thru-hole soldering and surface-mount technology. This project is unique in that it not only proposes curriculum for thru-hole soldering and surface-mount technology, it also includes an arrangement where students can gain certification in these areas of specialization upon successful completion of the course.